ITR: A Completely Integrated Processor-Memory-Interconnect Architecture for Data Intensive Applications

A new, completely-integrated processor-memory-interconnect (CI-PMI)
architecture model suitable for a range of data-intensive
applications is proposed. Compared to the existing processor-in-memory
(PIM) architectures, the proposed CI-PMI approach integrates more
completely the processing, memory, and interconnect. This is achieved
by starting with the classical architecture of high capacity memory,
namely, a binary tree of decoders with memory modules as leaves, laid
out as an H-tree. In the proposed model, copies of one or more types
of application-specific computing elements are added at different
levels of the memory decoder tree, desired functionality added to the
memory decoders to augment their role as interconnects as well as to
support desired computation, and, if necessary, additional interconnects
added between the application-specific processors, the memory modules,
and the decoders. The proposed architecture will be developed and
demonstrated for a data-intensive application, namely motion estimation
for MPEG encoding.

The results of the proposed research will be used to augment one
advanced class, to be taught at USC as well as UCI. The class will
take a top-down view of advanced processor-in-memory architectures
including those developed in this project.

The proposed research will advance the state of the art in computer
architecture, VLSI, and VLSI CAD, leading to faster and cheaper designs
for day to day computation and information retrieval, exchange, and
management.